Thermal Radiative Emission from Surfaces in the Presence of Electric Fields

ABSTRACT Shannon 9527983 The PI plans to investigate the validity of Planckıs Law in the presence of high electrical fields. Blackbody emission from a concentric cylinder Hohlraum with applied steady and high-frequency voltage will be measured. Applications to temperature measurement during high power and fast transient laser materials processing are envisioned.